Ramps and Pathways: A Constructivist Approach to Teaching Physical Science

This project is creating age-appropriate physical science curriculum that uses balls rolling on student-constructed ramps for children age 3-8 years. Students are expected to develop practical understanding of the movement of objects along ramps and pathways that leads to knowledge about concepts of forces and motion. They will improve their ability to engage in scientific inquiry and to solve engineering problems related to ramp structures, and develop positive attitudes about science and themselves as science learners.

Professional development materials are being created that support early childhood educators in understanding force and motion and how to support young children's construction of mental relationships that reflect content knowledge and their inquiry in the context of ramps and pathways.